Characterization and Genetic Regulation of Novel, Variably Expressed Pilin Proteins of Neisseria Species.

This proposal is for a study of variable surface proteins of Neisseria. The investigator has identified proteins called pilins, which are different in pathogenic and non-pathogenic strains. These proteins show antigenic and phase-specific differences, which will be studied further. Clones have been isolated, and the genes will be investigated. Undergraduates will be involved, and a RUI application is anticipated. %%% This proposal is to study differences between surface proteins called pilins on pathogenic and non-pathogenic strains of the bacterium Neisseria. The genes for these proteins appear to be expressed at variable times during the bacterial life cycle; this will be further investigated why the proteins differ between the pathogenic and non-pathogenic strains.